Dissertation Research: History and Ethnography in a Kenyan High School

9400307 Middleton This project involves the dissertation research of a student in cultural anthropology from Yale University, studying an elite secondary school in Kenya, Africa. The student will conduct participant observation in the school, and study the development through its colonial history of the school's customary practices and the educational values of both teachers and students. In addition the student will do a survey of a sample of students in their home communities, to assess their cultural backgrounds. The focus of the study will be to determine how the students' cultural backgrounds and knowledge of history interact with the school's program as developed through its own historical trajectory through colonialism and independence to the present situation of many global influences. The focal event to be explained is a violent attact against girls by boys protesting some administrative decisions in a similar elite school in Kenya in 1991. This research is important because schooling is commonly thought to be the unique road to cultural and social advancement in developing nations. Understanding how one elite school works in historical context will provide a case study that will be valuable in interpreting and reacting to student protests and activities in similar schools in similar countries. ***